Object Recognition using 3D Alpha Shapes

Three-dimensional "alpha shapes" will be explored and evaluated as a technique for describing and recognizing objects. This problem has important applications in biomedical research and instruction, clinical practice, and scientific visualization. Alpha-shapes have a well developed theory and appear promising. The first task is to complete a global correspondence scheme. Next, a pose-determination algorithm will be developed, based on matching Delaunay graphs. Initially, scenes to be described and recognized will consist of single, isolated objects. Eventually, methods will be developed to decompose complex scenes into subparts.